Stability of Large Scale Power Systems with High Order Model Reduction

The objective of this research is to integrate the concepts of dynamic and static security assessment. The integration begins by examining the relationship between load-flow equilibrium solutions and steady state stability analysis techniques. The integration process continues by relating sensitivities of transient stability margins to steady- state parameter values. Modeling issues arise throughout the study in terms of reduced-order models, system equivalents, and other simplifications. These formal, time-scale methods used by the proposers will add a firm mathematical framework to the ad-hoc engineering approximations now in existence for evaluating the static and/or transient character of a large-scale interconnected power system.